Dissertation Research: Adaptive Radiation in an Alpine Great Lake: Phylogenetic and Biogeographic Study of the Andean Killifish Genus Orestias

9311727 Kornfield This research involves a detailed phylogenetic and biogeographic study of endemic killifishes of Lake Titicaca in South America. The experimental approach will entail extensive collecting in the lake followed by a detailed genetic analysis of mitochondrial DNA sequence variation within and among species. These genetic data will be used to both construct a phylogeny for the these endemic fishes and examine population and historical processes related to this unusual diversification in this South American lake. %%% This investigation will provide a detailed assessment of the various processes (both biotic and abiotic) responsible for the diversity of endemic (unique) killifishes seen in Lake Titicaca. Investigations of the genetic uniqueness of isolated populations of killifish will facilitate the formulation of conservation policies optimized for preservation of the biotic diversity of this rare and unusual fish fauna. This is important as the entire Andean Altiplano ecosystem is becoming threatened by increased human activities. ***